SSC: Native American Summer Science Camp

Ninety seventh and eighth grade American Indian students participate in summer science camps offered at three different locations in the Upper Midwest: Duluth, Minnesota, Green Bay, Wisconsin, and Tama, Iowa. The camp curriculum focuses on natural resource management issues and American Indian traditions. Participants conduct scientific research projects in cooperative groups and discuss scientific research with professional scientists (including American Indian role models). The program integrates science, mathematics and communication skills through this informal camp setting. Project follow-up includes participant newsletters that discuss school science and math topics and their relevance to the summer camp experiences as well as visits to camp locations for seminars with parents and participants.